Mathematical Sciences: Galois Representations and Applications

This proposal deals with the study of Galois representations associated to elliptic curves and modular curves. Several years of study have yielded a large number of classes of these representations and an appreciation for their properties. The PI proposes to link representations in these classes. If carried out successfully, this will provide an alternative to the Serre-Mazur- Ribet program that gets around the Shimura-Taniyama-Weil conjecture. This is research in the field of number theory. Number theory starts with the whole numbers and questions such as the divisibility of one whole number by another. It is among the oldest fields of mathematics and it was originally pursued for purely aesthetic reasons. However, within the last half century, it has become an essential tool in developing new algorithms for computer science and new error correcting codes for electronics.